Postdoctoral Research Fellowships in Chemistry

Dr. Patrick J. Farmer has been awarded a Postdoctoral Research Fellowship in Chemistry. Dr. Farmer's doctoral degree was from Texas A&M University under the supervision of Professor Marcetta Darensbourg. Dr. Farmer will continue research at the California Institute of Technology under the sponsorship of Professor Harry Gray. Dr. Farmer's Postdoctoral training will provide him with bioinorganic expertise in metal-DNA interactions, cytochrome c oxidase, protein structure and function, metal porphyrin chemistry, and electron transfer through proteins. Longer term, he plans to synthesize well defined porphyrin ligand-metal systems in which the relative angle between donor and acceptor sites can be altered by bridging moieties. In this way, the directionality of electron transfer between ligand and metal sites can be determined. %%% The Postdoctoral Research Fellowships in Chemistry Program is viewed as an important infrastructural program designed to broaden the knowledge and experience of new Ph.D.s and attract them into meaningful careers in contemporary chemical research and teaching.